REU Site in Field Biology

This award provides funds to establish a Research Experiences for Undergraduates Site at Vassar College. The REU Site in field biology will support eight undergraduate students in summer research with six faculty mentors from the Department of Biology. The summer research program will include 10 weeks of intensive field and laboratory research by the students as apprentices to their faculty sponsors. Two weekly noontime seminars will provide opportunities for students and faculty to discuss their work with each other and on occasion with visiting scientists from nearby institutions. In the fall semester following the summer program, all students will participate in a Mini-symposium which will include both oral and poster presentations of the students' summer work. All student participants will receive reading assignments regarding their projects prior to the beginning of the 10 week summer term in order to familiarize them with the work to be conducted. Students will be selected from among applicants from Vassar College, Mt. St. Mary College, Spelman College and the Vassar-sponsored "Exploring Transfer" program, as well as from member institutions of the Mid-Atlantic Consortium in the Pew Foundation-sponsored Undergraduate Science Initiative. At least three of the eight participants will be selected form institutions other than Vassar. Special efforts will be made to enhance participation of minorities and women in this program.